Development of Control of Fetal Adrenal Medulla Function

This project involves the study of the factors which control the secretory function of the adrenal medulla (the inner portion of the adrenal gland) during fetal development using the pregnant sheep as the animal model. The adrenal medulla is active in early fetal life and responds to stressful stimuli by releasing catecholamines into the circulation. In the immature fetus before the establishment of functional neural input to the gland, the adrenal medulla can respond directly to stress such as hypoxia. During maturation, there is a transition from direct to neural control of adrenal medullary secretory function such that in the mature fetus and adult, adrenal medullary function is entirely under neural control. The neurotransmitter mediating the neural control is acetylcholine. In the present project, the hypothesis that the adrenal peptide vasoactive intestinal peptide (VIP) is the mediator of the direct control will be tested. Two specific objectives will be investigated. First, the effectiveness of VIP and acetylocholine in stimulating catecholamine release and biosynthesis in the adrenal medulla will be determined in sheep fetuses at early, mid and late gestation. Secondly, the appearance of receptors for VIP and acetylcholine on the fetal adrenal medulla at these gestational ages will be examined. The maternal adrenal medulla will be similarly studied for comparison. The hypothesis that in the immature fetus, the adrenal medulla responds to VIP stimulation but not to cholinergic stimulation because of the lack of cholinergic receptors will be tested. As the fetus matures, responsiveness of the adrenal medulla shifts from VIP to acetylcholine in association with the appearance of cholinergic receptors. The results from these studies will provide understanding for the factors which regulate adrenal medullary function during fetal life, and the maturation of these events leading to adult type of function.//